US-Brazil Cooperative Research on Characterization of Mixed Oxide Films

This award supports cooperative research on mixed oxide superconducting films to be carried out by Professors Emile Schweikert and D.L. Cocke at Texas A&M University and Professors Barros Leite, Baptista, Patnaik and Silveira at the Pontifical Catholic University in Rio de Janeiro, Brazil. The research will focus on the application of several modern analytical techniques to the characterization of doped anodic films, i.e., mixed oxides grown on amorphous metals and alloys. Techniques which will be refined and developed for this work include Rutherford backscattering spectrometry (RBS) and nuclear reaction analysis (NRA). In addition, surface characterization by particle induced mass spectrometry will be developed. These techniques will be used to determine the thickness and composition of these films that exhibit novel catalytic, resistance to corrosion or superconducting properties. This work continues a very productive collaboration between Brazilian and U.S. scientists. The facilities and expertise of both groups contribute, particularly in the development of the new techniques, RBS and NRA, in Brazil and the sample preparation and analytical support at Texas A&M. Students at Texas will be included in Schweikert's study of the surface and thin layer characterization of the oxide films and in Cocke's sample preparation and analysis.